Instructional Computer Laboratory for Introduction to Statistics

Moorhead State University will implement an IBM micro-computer laboratory for two elementary statistics courses requiring a background in algebra and courses for pre-college teachers. With the use of the statistical package MINITAB, eleven hundred students per year will do real world exploratory statistical analysis, look for patterns and relationships, confirm or disprove the expected, and discover new phenomena. Problems using real data from accounting, agriculture, economics, management, marketing and medicine will be used. The primary impact on the secondary mathematics majors and elementary education majors at Moorhead State University will be development of computers skills necessary for classroom teaching, concepts of probability and descriptive statistics. The principal investigator is a biostatistician with publications in computer assisted analysis. The grantee is providing an equal sum obtained from non-Federal sources.